Purchase of a Departmental Gas Chromatograph/Mass Spectrometer (GC/MS) System

This award from the Chemistry Research Instrumentation Program will assist the Department of Chemistry at the University of Wyoming in the purchase of a Gas Chromatograph Mass Spectrometer (GC-MS). This new instrumentation will enhance greatly research in a number of areas including the following: 1) Sterochemical dependence of vesicle bilayer properties, 2) Biomimetic oxidation of guanidines by metalloporphyrin oxo and nitrosyl complexes: Toward a rational understanding of the biosynthesis of nitric oxide from arginine, 3) Photochemical oxidation of organic sulfides, 4) Reactive geometries of carbonyl-Lewis acid complexes, 5) Mechanistic and preparative studies of the electrocatalytic reduction of CO2 to hydrocarbons using polymer/metal electrodes. %%% The gas chromatograph mass spectrometer (GC/MS) is used to separate the molecules in a reaction mixture, to measure the relative amounts of the various molecules present and to obtain information about the molecular weight of the molecules present. This instrument is essential for research work in modern chemical synthesis.